Workshop: Radical Innovations of Software and Systems Engineering in the Future

The workshop titled ``Radical Innovations of software and systems
engineering of the future'' to be held October 7-11, 2002 at
Universita' Ca'Foscari di Venezia in Venice, Italy, will bring
together leading researchers in all aspects of Software and System
Engineering with a view towards discussing potential research topics of
tomorrow. To accomplish this goal, the workshop will have several
talks and several open discussions, with the hope that the latter
would lead to cross-fertilization of ideas from several disparate
sub-areas of Software and Systems Engineering.